2005 Bloomington Geometry Workshop

Abstract

Award: DMS-0503596
Principal Investigator: Christopher M. Judge and Bruce Solomon

The Bloomington Geometry Workshop brings together leading
geometers to discuss and disseminate recent advances in geometry
and related fields. This year's list of speakers includes Ian
Agol, Francois Ledrappier, John Lott, Gang Tian, and Fangyang
Zheng. These speakers will inform participants of work in
hyperbolic manifolds, rigidity, Kahler geometry, and the Ricci
flow.

The purpose of the Workshop is to help foster cooperation and
collaboration among researchers in the midwest region as well as
help educate graduate students and young researchers about the
latest developments in geometry. Most of the funding will be used
to support the travel of graduate students and recent PhD's.
These young researchers will come away from the workshop better
prepared to take part in current research in geometry, a field of
basic research that is important to computer graphics, quantum
physics, material science, and many other scientific disciplines.